Studies in Representation Theory

Abstract:
DMS-0070714

In earlier work, I observed that the functional equation for L-functions
attached to Maass modular forms can be derived by taking the Mellin
transform of their (distribution) boundary values along the real axis,
rather than the traditional way of integrating the modular forms along
the imaginary axis. My method appears likely to apply also to higher
rank groups which, until now, have resisted the usual arguments. I intend
to extend the idea to higher rank cases. This involves a number of
representation theoretic sub-problems, several of which are interesting
in their own right. I also plan to continue my joint work with Vilonen,
on characteristic cycles of representations of real reductive groups.
Such representations are attached to constructible sheaves on the flag
variety, via the Beilinson-Bernstein construction and the Riemann-Hilbert
correspondence. These sheaves, in turn, have characteristic cycles
which encode deep information about the representations. By studying the
characteristic cycles, we intend to obtain geometric invariants of
representations which clarify the meaning of unipotence, and possibly
point to ways of constructing unipotent representations geometrically.

The overall theme of the proposal is representation theory. Felix Klein,
late in the eighteenth century, enunciated the principle that the notions
of a group and group action formalize the idea of symmetry. The laws of
classical mechanics, for example, are invariant under rotations and
translations, which together form the symmetry group of Newtonian
mechanics. Special relativity -- discovered after Klein -- has a different
symmetry group, and this difference explains the fundamentally different
behavior relativistic mechanics; indeed, the difference in symmetry groups
was well understood even in the infancy of the theory of relativity. The
symmetries of mechanics lie very much on the surface. Less obvious --
sometimes deeply hidden -- symmetries arise in many contexts, not only
physics, but also geometry, number theory, and differential equations.
Representations are the "atoms", i.e., the most basic ingredients, of group
actions. Representation theory studies both the representations themselves,
and applications of the idea of symmetry where the less obvious properties
of certain representations lead to new insights. The second part of my
proposal is of the former type, and the first part, of the latter.